CAREER: Cysteine Side Chain Functionalization and Transformations with N-Alkyl Pyridinium Salts

Dr. Fang Wang of the University of Rhode Island will investigate the chemical modification of biological molecules, including proteins and peptides. Research on proteins and peptides will help scientists better understand how living organisms work and support the development of new biomaterials and medicines. Despite this promise, only a small number of tools are available for modifying these molecules. This situation substantially limits scientists’ ability to create new molecules for use in biotechnology. This project will develop simple and efficient methods for altering the structures of biomolecules under mild conditions. These approaches will make it possible to generate new biomolecules that are otherwise difficult to obtain. Students trained through this project will learn modern techniques in chemistry and biology that are important to the pharmaceutical and biomanufacturing industries. This project will also yield broad impacts by establishing collaborations with academic and industry partners. Additional efforts will be made to include research-based experiments in the sophomore Organic Chemistry laboratory curriculum and to hold an annual training workshop to help participants build skills in advanced manufacturing and biotechnology.

This work will leverage the favorable properties of N-alkyl pyridinium salts to enable synthetic modifications of cysteine side-chain functionalization in proteins and unprotected peptides. The first objective will systematically investigate how structural variations in pyridinium salts influence their reactivity toward cysteine in nucleophilic aromatic substitution reactions across different model peptides and proteins. The second objective will explore the side-chain conversion enabled by cysteine-pyridinium adducts, with particular emphasis on desulfurization chemistry and carbon-heteroatom bond formation in peptides. The third objective will study the preparation and basic synthetic transformations of 3-haloalanine-containing peptides. Collectively, this project will advance fundamental understanding of cysteine aromatic substitution and establish robust synthetic systems for rapid, selective modification of biomacromolecules.